An Analysis of the 1990 Census

This award will provide support for research using data from the 1990 Census to be published as a two-volume 1990 Census Monograph series. One of these volumes will examine the main social and economic changes that have occurred in the 1980s, and the other will assess the status of the many diverse groups that make up American society. Among the major trends covered in Volume I will be changes in family structure and the rise of female-headed families, educational attainment and skills levels, employment and the distributions of earnings and income. Volume II on social diversity will cover gender differences in education, economic participation and family responsibility, differences in the well-being of children and the elderly, racial and ethnic differences in educational and economic achievement, and the increasing diversity of the American population brought on by the large wave of immigration that continued in the 1980s. The 1990 Census Monographs will provide a wealth of information about social and economic changes during the 1980s. As its predecessors based on earlier Census data, the 1990 Census Monographs will be extremely useful for teachers, students, decisionmakers, and researchers.